Dissertation Research: Patronage and "Experts: in Elizabethan England

The goal of this dissertation project is to develop a better understanding of the origins of technical and mathematical expertise in Elizabethan England by examining various engineering projects of the era, the individuals who contributed their knowledge and skill to them, and the patrons who selected and supported these individuals. Toward that end, the researcher will examine archived manuscripts of the Elizabethan State Papers as well as some collections of personal papers, including those of both patrons and clients. These materials will support chapters focused on navigation, mining, and cartography.